Oceanographic Instrumentation

The Chesapeake Bay Institute of Johns Hopkins University will acquire several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V RIDGLEY WARFIELD, a research vessel operated by the University. A substantial part of the ship's operating schedule during 1990 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ship and of the institution to support research and engineering activities. The instrumentation includes: -Spectrophotometer and Nephelometer for in situ measurements of optical characteristics in the water column, -Plankton nets for general shared use, -Vibration isolation work station to dampen out ship vibrations while doing microscopy work, and -general electronics test and maintenance equipment for shipboard systems. The instrumentation described above will increase the capability of the organization to support NSF-sponsored research and engineering projects.